Conference: Proposed Workshop on CPS Rising Stars

This project will provide support for a “Cyber Physical Systems (CPS) Rising Stars” workshop to be held in May 2024 at the Link Lab, a center of excellence in CPS within the University of Virginia’s School of Engineering. The primary goal of the workshop is to identify and mentor outstanding Ph.D. students and recent PhD graduates who are interested in pursuing careers in CPS fields. A secondary but equally important goal of the workshop is to broaden participation in CPS by identifying CPS Rising Stars paying special attention to institutional diversity and non-traditional backgrounds in selection.

The workshop provides participants with insights about navigating the early stages of CPS careers, particularly in academia. Participants also have opportunities to share their research and to network with faculty in Link Lab and peer CPS Rising Stars from across the country. By attending this workshop, participants can initiate new collaborations with researchers and gain professional mentors that can support them in their career advancement.

This will be the third consecutive CPS Rising Stars Workshop hosted at the Link Lab. This year’s workshop will be modeled after the two prior successful workshops. Taken together, the three workshops are impacting CPS by building a cadre of early career researchers in CPS. CPS Rising Stars are taking impactful positions in academia, government, and industry, positively impacting not only core CPS research but also a variety of domains that apply CPS principles to challenges facing society.